Shipboard Scientific Support Equipment

ABSTRACT

09 July 2009
Proposal Number: 0943737
Institution: San Jose State University, MLML
PI: S. Lamerdin
Co-PI: K. Coale

This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5).

The proposal requests numerous Shipboard Scientific Support (SSSE) items for the vessel operated by Moss Landing Marine Labs (MLML); namely the R/V POINT SUR. The requests specifically include items that have been recommended from past NSF inspections, or Post-Cruise Assessments (PCA's) and have been otherwise deferred by the operators due to cost. All of the items requested will either improve safety, enhance science support capability, or extend vessel service life. Due to the nature and timing of these requests, the vendor quotation standards normally required by the SSSE Program were waived out of necessity with many of the figures provided as estimates for budgetary purposes and based mainly on past experience of the vessel operators for similar work.

Broader Impacts: The R/V POINT SUR supports federally funded scientific research in the Pacific Northwest in order to expand human knowledge of the ocean environment. During operations, the vessel routinely exposes graduate and undergraduate students to seagoing oceanography. Pubic outreach is also achieved through the State's Center for Integrative Coastal Observation, Research and Education program (CI-CORE) and the Alliance for Coastal Technologies program (ACT), real-time satellite connectivity from ship to shore, and open house events. The POINT SUR scheduled to complete over 130 NSF sponsored days in 2009.